Renewal and Enhancement of the Scholarship for Service Program

Computer Science (31)

This project provides scholarships for students seeking degrees (either undergraduate or graduate) in Information Assurance (IA). Each scholarship is for the last two years of a student's degree program. Students receive valuable education and training -- including hands-on laboratory experience -- in state-of-the-art FPGA based security, intrusion detection, digital forensics, security visualization, and ad hoc network security. Upon graduation, scholarship recipients must work for a Federal government agency in an IA position. The scholarship program helps to address the nation's need for qualified information technology professionals working in government agencies. The project has a proactive approach to recruitment of minorities and females into the scholarship program.